Postdoctoral Research Fellowships in Chemistry

Dr. Laurence E. Fried has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Fried's doctoral degree was from Cornell University under the supervision of Gregory Ezra. Dr. Fried intends to continue research at the University of Rochester under the sponsorship of Professor Shaul Mukamel. Dr. Fried's area of postdoctoral research will be nonlinear pump-probe spectroscopy in condensed phases with particular emphasis on solvent response. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.